CLASS: Continuous Learning and Automated Scoring in Science

This five-year project investigates how to provide continuous assessment and feedback to guide students' understanding during science inquiry-learning experiences, as well as detailed guidance to teachers and administrators through a technology-enhanced system. The assessment system integrates validated automated scorings for students' written responses to open-ended assessment items (i.e., short essays, science narratives, concept mapping, graphing problems, and virtual experiments) into the "Web-based Inquiry Science Environment" (WISE) program. WISE is an online science-inquiry curricula that supports deep understanding through visualization of processes not directly observable, virtual experiments, graphing results, collaboration, and response to prompts for explanations. In partnership with Educational Testing Services (ETS), project goals are: (1) to develop five automated inquiry assessment activities that capture students' abilities to integrate their ideas and form coherent scientific arguments; (2) to customize WISE by incorporating automated scores; (3) to investigate how students' systematic feedback based on these scores improve their learning outcomes; and (4) to design professional development resources to help teachers use scores to improve classroom instruction, and administrators to make better informed decisions about teacher professional development and inquiry instruction. The project targets general science (life, physical, and earth) in three northern California school districts, five middle schools serving over 4,000 6th-8th grade students with diverse cultural and linguistic backgrounds, and 29 science teachers. It contributes to increase opportunities for students to improve their science achievement, and for teachers and administrators to make efficient, evidence-based decisions about high-quality teaching and learning.

A key research question guides this effort: How automated scoring of inquiry assessments can increase success for diverse students, improve teachers' instructional practices, and inform administrators' decisions about professional development, inquiry instruction, and assessment? To develop science inquiry assessment activities, scoring written responses include semantic, syntax, and structure of meaning analyses, as well as calibration of human-scored items with a computer-scoring system through the c-rater--an ETS-developed cyber learning technology. Validity studies are conducted to compare automated scores with human-scored items, teacher, district, and state scores, including sensitivity to the diverse student population. To customize the WISE curriculum, the project modifies 12 existing units and develops nine new modules. To design adaptive feedback to students, comparative studies explore options for adaptive guidance and test alternatives based on automated scores employing linear models to compare student performance across randomly assigned guidance conditions; controlling for covariates, such as prior science scores, gender, and language; and grouping comparison studies. To design teacher professional development, synthesis reports on auto-scored data are created to enable them to use evidence to guide curricular decisions, and comments' analysis to improve feedback quality. Workshops, classroom observations, and interviews are conducted to measure longitudinal teachers' change over time. To empower administrators' decision making, special data reports, using-evidence activities, individual interviews, and observation of administrators' meetings are conducted. An advisory board charged with project evaluation addresses both formative and summative aspects.

A research-informed model to improve science teaching and learning at the middle school level through cyber-enabled assessment is the main outcome of this effort. A total of 21 new, one- to three-week duration standards-based science units, each with four or more automatically scored items, serve as prototypes to improve students' performance, teachers' instructional approaches, and administrators' school policies and practices.